Mathematical Sciences: "Statistical Computation and Computational Geometry"

Geometric tools are developed that will provide key developments in computational statistical theory and methodology. The research direction is to develop and study probability bounds for the probability content of convex polyhedra with special structure via the "abstract tube method." Accounting for this geometric structure can lead, in some cases, to explicit and easy to calculate bounds for error probabilities, and in other cases to greater efficiency in the Monte-Carlo evaluation of error probabilities. This research which is at the interface between computational statistics and computational geometry, will produce an expanded collection of tools for constructing practical and sharp probability bounds for a vast array of applications. Particular focus is given to obtaining new bounds for the probability content of bodies in higher dimensions using methods that arise from the study of lower dimensional problems with similar structure. There is an abundance of real world applications in which stochastic models are utilized to make critical decisions based on probability calculations. For example, probability calculations are used to determine how likely a modeled system is to fail. This applies to systems such as a bridge, an ecosystem, a human body, or a manufacturing method. The research explores ways in which special model structure for situations such as these can be exploited to produce more efficient and precise probability calculations. This new methodology should be directly applicable to manufacturing and quality control, structural and system reliability, environmental regulation, and a host of other areas.